Quantum Field Theories in the Presence of External Fields

0070986
Incera
This three-year research project will continue the investigations of the PIs on the area of Quantum Field Theories in the presence of external magnetic fields, helping them to widen their international
scientific collaboration, and maintaining their commitment to undergraduate research.
Quantum Field Theories in the presence of external fields has long been a topic of intensive study in theoretical physics with applications to condensed matter physics, astrophysics and cosmology. In the present project, the PI's will use non-perturbative techniques to study the influence of external magnetic fields on various physical situations: (1) the generation of the baryon asymmetry (the fact that there are more particles than antiparticles in the universe) within the so called Standard Model of Elementary Particles, (2) the behavior of the thermal conductivity in high -T superconductors as a function of the applied magnetic field, and (3) the propagation of neutrinos in neutron stars and
during the early universe evolution.